Kinematic and Bulk Microphysical Structure of Deep Convection During Cape: Radar Analysis, Numerical Modeling and Accuracy Evaluation

In conjunction with Dr. Knupp of the University of Alabama, the Principal Investigator will conduct an observational and numerical modeling study of deep convective storms. Specific objectives include: Investigate the effects of condensate loading/unloading and phase change on updraft/downdraft vertical acceleration. Using advanced radar techniques, determine the mix of various hydrometeor species within deep convection. Develop and apply a radar scan simulation model which will be used to evaluate the accuracy of wind and hydrometeor fields derived from the respective multiple Doppler and multi-parameter radar analyses. If successful, this research will help clarify the relationships and interactions between the thermodynamics and microphysics of deep convective storms.